Oceanographic Instrumentation

The University of Michigan's Center for Great Lakes & Aquatic Sciences will acquire several items of oceanographic instrumentation to be placed in a pool of shared use equipment. This equipment is maintained for use on or in association with the R/V LAURENTIAN, a research vessel owned and operated by the University. A substantial part of the ship's operating schedule during 1991 is in support of NSF-sponsored research projects. The instrumentation will also increase the capabilities of the ship and of the University to support research and engineering activities. The instrumentation includes: -Side-scan sonar system for mapping details of bottom morphology that are useful in studies of sedimentation and the distribution of various objects and structures, and -Niskin bottles for collecting discrete seawater samples at various depths in the water column, The instrumentation described above will increase the capability of the University to support NSF-sponsored research and engineering projects.